Solid Phase Membrane Mimetics (II)

Immobilized Artificial Membranes (IAMs) are solid silica particles, containing, on their surfaces, phospholipids covelantly attached to the silica surface by linkage to the end of one of the fatty acid chains of the phospolipid. Thus the polar headgroups of the phospholipids protrude away from the silica surface. These surfaces are prepared with attachement densities of the order of phospholipid monolayer densities. Therefore the silica surfaces resemble one-half of the lipid bilayer of a biomembrane, and they are intended to mimic the lipid environment of biomembranes. In particular, these surfaces can be used for the chromatographic separation and purification of membrane bound proteins: Membrane proteins embedded in endogeneous cell membranes exhibit multiple types of binding to membrane lipids. The working principle behind using IAM surfaces in the chromatographic separation of membrane proteins is that if these proteins, extracted and in a mobile carrier phase, are passed over IAMs tailored to resemble the lipid microenvironment of the biomembranes from which they came, the IAM surface, taking advantage of the multiple binding sites, ought to be able to selectively bind the protein. Previous research by the PI on IAMs was supported by a prior NSF grant (CTS8408450). This research began by examining a prototype IAM surface containing diacylphosphatidylcholine (PC) molecules covelantly linked to silica propylamine. Early research indicated that these prototypes leaked lipids, and the PI solved this problem by using ether linked single chained lipids, and end caping, with alkyl anhydrides, unreacted propylamine groups. After the leakage problem was solved, the PI used ether-linked, capped PC- IAMs to chromatographically separate and purify small molecules such as deoxynucleotides, amphetamines and fatty acids, and large molecules such as several species of cytochrome P450. The proposed research focuses on varying the surface binding characteristics by preparing IAMs with PC and a secondary phospholipid.. The secondary phospholipids are phosphatidylethanolamine, phosphatidylglycerol, phosphatidyic acid and phosphatidylserine. After preparing these different IAMs, the affinity of the mixed phospholipid surfaces to two model proteins, cytochromes P450 and phospholipase A2 (PLA2) will be studied in an effort to elucidate the binding mechanisms of the proteins to the surfaces. These proteins have been selected because their structure has been well studied. The research will also invesitigate an affinity removal procedure for extracting the bound proteins from the surface. In this procedure, the single chained lipids are dissolved in an aqueous carrier phase at concentrations high enough to form micelles. These micelles can act as reservoirs of lipid; as the carrier phase passes over the IAM surface, lipid molecules can force desorption by intercalating themselves into the lipid layer, and then displacing and ultimately solubilizing the protein molecule. In addition, 31P-NMR will be used to evaluate the rotational properties of the immobilized lipid headgroups, both in the presence and absence of bound protein.